Precision Measurements and Fundamental Interaction Studies at Indiana University

Many features of the universe we observe today are mysterious. We do not understand the dark matter which seems to hold galaxies together, nor why the universe does not appear to possess large amounts of antimatter. We also want to subject the present model of particles and interactions to more stringent experimental tests and thereby uncover new physical phenomena. The team will investigate both of these scientific themes by conducting specific, high-precision measurements of the fundamental forces of nature and by searching for totally new phenomena which could help explain these mysteries using precision experiments involving electrons, neutrons, and neutrinos. Results will address fundamental questions in particle physics, astrophysics, and cosmology. In the course of conducting this research, we will educate the next generation of skilled PhD scientists for jobs in research and teaching universities, industry and national labs, and medical and computer technology, engage with the public, and develop new exhibits for a local science museum.

We will search for evidence that neutrinos are their own antiparticles. We will conduct the most precise measurement of the weak force between electrons. We will measure the size of constructive interference in neutrino scattering from protons and neutrons in the argon nucleus to search for exotic neutrino-quark interactions, test dark matter theories, and calibrate future supernova neutrino detectors. We will look for exotic spin-dependent neutron interactions with matter. We will test weak interaction theory and sharpen theoretical predictions of the amount of helium left over in the Big Bang by preparing a new measurement of the decay rate of the neutron. We will develop an experiment to search for neutrino mass in tritium beta decay to confront astrophysical information from galactic dynamics and the cosmic microwave background. We will prepare laboratory experiments to help understand why the Big Bang left the universe with the surplus of matter over anti-matter that we see today by searching for a crucial clue: a microscopic dynamical process that does not retrace its steps if you took a film of it and ran it backwards.